BE/GEN-EN: Elucidating Mechanisms Responsible for the Persistence of Microorganisms in Drinking Water Distribution Systems via DNA Microarray Technology

0412618
Raskin
Growth of microorganisms and formation of biofilms on pipe surfaces is observed in drinking water distribution systems despite the presence of disinfectant residuals. Because of the possible presence of pathogenic species, this represents a public health concern. This project proposes to investigate the mechanism of microorganism persistence in the presence of disinfection residuals using genome-based DNA micro-arrays to examine gene expression patterns. Specifically, the work will: (1) Develop a method for the application of DNA micro-array technology for the study of specific microbial genome responses in environmental microbial communities, (2) Investigate whole genome transcription profiles of Escherichia coli and Mycobacterium avium in pure culture, and in the complex communities of a simulated distribution system, (3) Analyze these expression profiles to identify a pattern of responses characteristic of disinfectant exposure, (4) Characterize the role of selected genes in resistance to disinfectants and survival in drinking water distribution systems.

The educational plan for this project is well documented. Three graduate students and two undergraduates per year will be trained under this project. In addition, workshops for middle and high school teachers will be developed.